Planning Grant to Establish an Alternate Site for MAST at the Colorado School of Mines

EEC-0000405
Baldwin

This planning grant funds the Colorado School of Mines for industry/university interactions to determine the feasibility and viability of becoming a research site of the Industry/University Cooperative Research Center (I/UCRC) for Membrane Applied Science and Technology. The Co-Directors of the site would be Dr. Robert Baldwin and Dr. Douglas Way.

The Colorado School of Mines expertise will broaden the Center's research base by addressing research in Sample Membrane Interactions Using Field Flow Fractionation, Separation of Gene-Therapy Products with Field Flow Fractionation, Cyclodextrin Modified Adsorbents and Membranes for Chiral Separations, Cell-Bacteria Sorting Using Laser Tweezers, Switchable Selective Channels in Porous Materials for Separations, Separation and Fractionation of Viral Precursers by Field Flow Fractionation, Membrane Reactor for Methanol/Ethanol Reforming, The Influence of Free Volume on the Permeation and Sorption in Super-Glassy Polymers, Faujasite Membranes for CO2/N2 Separations and Fundamentals of Nanofiltration at High Composition.